Mathematical Sciences: Symplectic Topology & Riemannian Geometry of Lagrangian Submanifolds

9504455 Oh The proposed research lies in the general area of symplectic topology and geometry. More specifically, the investigator proposes to study Floer cohomology and Lagrangian submanifolds. It is expected that such a study will lead to new techniques for Lagrangian embedding and immersion problems. In addition, the investigator proposes to consider curvature estimate problems for special Lagrangian submanifolds - this may have ramifications in minimal submanifold theory. Symplectic geometry provides a rigorous mathematical setting for many problems in classical and quantum mechanics. Lagrangian submanifolds are fundamental objects - they are extremal objects in some sense - in symplectic geometry, Floer cohomology is a powerful topological tool for their study.